Shipboard Oceanographic Instrumentation

0139387
Freitag
This award to University of Rhode Island's Graduate School of Oceanography provides instrumentation to improve the oceanographic research capabilities of the research vessel Endeavor, an NSF-owned ship operated by URI as part of the University-National Oceanographic Laboratory System research fleet. The dissolved oxygen sensors, pure water system, water sampling bottles and improvements to the ship's isotope van supported here will replace aging systems with modern ones, maintaining state of the art capability for researchers using the ship. These improvements will be of substantial advantage to marine scientists using the ship in their research during 2002 and future years.
***